Industry/University Cooperative Research Project: Polymer Solution Thermodynamics (with International Cooperation)

The objective of this research program is to obtain experimental data on the behavior of mixtures of polymers and solvents and to develop methods to correlate and predict this behavior. In order to obtain a predictive method, a new group-contribution equation of state is to be developed based either on the Sanchez-Lacombe lattice-hole theory or the generalized Van der Waals partition function approach. In addition, the effects of polydispersion are to be taken into account. A computer database is being created on available literature data and the new experimental data obtained in this program. Data are being collected on binary interactions by use of inverse gas chromatography and piezoelectric sorption techniques and on ternary systems by the study of liquid-liquid equilibria using size exclusion chromatography for analysis. Experimental measurements will be taken over a wide range of solvent concentrations with a carefully selected set of carefully prepared monodispersed polymers, which in a number of cases will be provided by the industrial DIPPR sponsors. The PIs have established close collaboration with the workers in the polymer laboratory at the Technical University of Denmark. This carefully built network of theoretical insights, experimental apparatus, practical objectives, industrial consultation, and international cooperation provides a unique opportunity to launch a new and vigorous attack on the serious problems relating to polymer solutions.